Environmental Monitoring and Photodocumentation Equipment for West Indies Laboratory

West Indies Laboratory (WIL) of Fairleigh Dickinson University (FDU) is a scientific teaching and research facility located in the northeastern Caribbean Sea on the island of St. Croix. For 18 years biologists, ecologists and geologists (from institutions throughout the U.S. and the world) working at WIL have significantly added to our knowledge of (1) the structure and function of shallow water tropical marine systems, particularly coral reefs and seagrass beds, and (2) the biology, ecology and paleo-ecology of tropical marine organisms. In a period of increasing pressure on nearshore environments and organisms from both local human impacts and also global environmental changes, an understanding of these natural systems is critical. This project provides funds to purchase (1) instruments to record long term physical oceanographic and atmospheric data and (2) photodocumentation equipment: a dissecting photo-microscope and underwater video system. The strengths of the research effort at WIL continue to be the combination of field with laboratory studies and multidisciplinary approaches to questions. However, present research efforts are hindered by lack of long term environmental data. A reliable program of monitoring and storage of environmental data combined with the ability to document biological, ecological and geological phenomena photographically will be of considerable value to present research at the laboratory as well as future research programs. The results of much of this research can be useful both as a predictor of possible future changes in nearshore tropical environments, as well as information upon which to base management decisions.